Institutional Self-Assessment of Science, Technology, and Mathematics Curricula

The overall purpose of the NSF-TCUP planning project is to enhance science, technology, and
mathematics education at Saginaw Chippewa Tribal College. In addition, the project will lay the
groundwork to apply for an NSF-TCUP Implementation Grant to carry-out those strategies on a long-term
basis. These outcomes will be achieved through the following objectives and methods:

Objectives:
To complete a comparative study of SCTC.s STEM curricula and STEM curricula of at least two
other colleges, including recommendations for curricular improvement.
To complete a written plan of action for revising SCTC.s Plan of Learning by Students (PALS) and
for training SCTC science, technology, and mathematics faculty to design their coursework to include
quantifiable outcomes using the WIDS software.
To complete a Facilities and Infrastructure Plan based on projected curricular and enrollment
expansion over a three-year period.
To complete a first draft of the NSF-TCUP Implementation Grant application.

Methods:
Systematically assess existing curricula and compare to curricula at similar colleges
Conduct survey of literature and best practices
Attend conferences and training sessions to inform efforts
Provide on-site training in instructional design and assessment using a paid consultant
Visit tribal college and community college campuses to collect information
Survey college's personnel and infrastructure resources
Develop long-range plans for curricular enhancement
Synthesize and incorporate information into planning efforts to transform curricula